ITR/SY+SI: Language Technology for Trustless Software Dissemination

CR-0121633
ITR/SY+SI: Language Technology for Trustless Software Dissemination
Karl Crary, Robert Harper, Peter Lee, Frank Pfenning

ABSTRACT:

The project investigates the theoretical and engineering basis for
the trustless dissemination of software in an untrusted environment.
To make this possible the project investigates machine-checkable
certificates of compliance with security, integrity, and privacy
requirements. Such checkable certificates allow participants to
verify the intrinsic properties of disseminated software, rather than
extrinsic properties such as the software's point of origin.

To obtain checkable certificates the project develops certifying
compilers that equip their object code with formal representations
of proofs of properties of the code. Specifically, the project
investigates the use of proof-carrying code, typed intermediate
languages, and typed assembly languages for this purpose. In each
case certificate verification is reduced to type-checking in a
suitable type system.

To demonstrate the utility of trustless software dissemination, the
project develops an infrastructure for building applications that
exploit the computational resources of a network of computers. The
infrastructure consists of a "steward" running on host computers that
accepts and verifies certified binaries before installing and
executing them, and certifying compilers that generate certified
binaries for distribution on the network.

The scope of the investigation includes the theory of specification
and certification, and the systems building required to implement
these ideas.